Graduate Education in Economics

Because of growing concern about the direction of economics research, the economics profession, and graduate education, the American Economic Association established the Commission on Graduate Education in Economics to study the nature of the training of new PhDs entering the profession. Based on its findings the Commission is to make appropriate recommendations concerning graduate education in economics. This project completes the collection and analysis of extensive survey data, undertakes several related special studies and prepares a report bringing together the results of this research, and develops whatever recommendations emerge out of the findings of this study. Four central questions give focus to the study: 1. What is the content and structure of graduate education in economics? 2. What are the linkages between the content and structure of PhD programs, the nature of dissertation research currently underway, and the post-PhD performance of recent PhDs? 3. Who is undertaking graduate work in economics, and what are the trends over time in the flow of entrants and new PhDs? 4. What are the prevailing views among members of the profession and employers of new PhDs about graduate education in economics? The information needed to answer these and other questions is being obtained through questionnaires to graduate departments and surveys of faculty members, graduate students, recent PhDs, employers and department chairmen. Existing information is utilized from such organizations as the National Science Foundation, National Research Council, the U.S. Department of Education, and the American Economic Association. Special studies are undertaken by outside consultants. %%% This is a timely and important study of graduate education in economics by the American Economic Association, the leading professional association in economics. The results of this project will provide the first systematic study of how the economics profession educates, trains, and socializes its new entrants, whether into academic life or into the private sector. The research could motivate and guide educational reforms in graduate economics education. It also could become a model for broad-based self analysis that other disciplines will use.